ADVANCE Leadership Award

Over the past thirty years Spelman College has made great strides in its efforts to increase the
number of women and the number of African American students who complete bachelor's degrees
in mathematics and who enter into and persist in graduate programs in the sciences, mathematics and
engineering. Those efforts have resulted in a greater understanding of the academic training and early
professional development needs, and the support mechanisms required to attract these students into
the higher levels of academic excellence and academic leadership. It has also resulted in a cadre of
women faculty who hold leadership positions throughout the SEM areas in their own disciplines.
The current ADVANCE project intends to capitalize on past success by pursuing the following
goals:

a. Use scholarly writings to disseminate information regarding support structures
aimed at increasing retention among women in graduate mathematics programs; and
information on support mechanisms to advance the careers of women in the scientific
community.
b. Facilitate the transition of the PI back to a full-time research and teaching position
following a period of long-term leadership in efforts to expand the pipeline of
academic leaders in SEM areas.
c. Increase the capacity of women to assume academic positions in higher education
as mathematicians and to advance to leadership roles in the science, engineering and
mathematics academic community, with a particular emphasis on minority women.

This project is supported by the NSF ADVANCE Program. The overall mission of the ADVANCE Program is to increase the participation of women in the scientific and engineering workforce through the increased representation and advancement of women in academic science and engineering careers.